Postdoctoral Research Fellowship in Plant Biology

This award funds a postdoctoral research fellowship in plant biology for two years. The project entitled "Identification of transcription factors involved in regulation of gene expression by light" is to be carried out in the laboratory of Dr. Gloria Coruzzi at Rockefeller University. The applicant, who has received a strong training in plant biology, will focus on studies on the regulation of gene expression in tobacco during her fellowship tenure. The Postdoctoral Fellowships in Plant Biology are designed to increase the number of outstanding young investigators in plant biology.